Glycopolymers for Protection of Protein Conjugates

In this project funded by the Macromolecular, Supramolecular and Nanochemistry Program in the Division of Chemistry, Heather Maynard of the University of California at Los Angeles will synthesize and study trehalose-containing polymers for the stabilization of proteins to environmental stressors and proteolytic degradation. Protein-reactive trehalose side chain monomers and polymers will be synthesized using controlled radical polymerization techniques. These polymers will be conjugated to proteins, and the stabilization of the proteins by the glycopolymers will be quantified. The broader impacts of the project involve training undergraduate and graduate students, educating kindergarten through high school girls about chemistry, polymers, and biomolecules through partnership with the Girl Scouts of Los Angeles, and participating in outreach to the general public via UCLA Parents Weekend and UCLA Alumni Day.

Proteins are important reagents in chemical and pharmaceutical industry; however, many proteins are unstable and require specialized conditions such as cold temperatures during storage, transport, and use. Proteins that are attached to trehalose polymers are expected to have significantly increased lifetimes and bioactivities compared to unmodified versions. This research is expected to significantly broaden the use of proteins by academic researchers and industry by reducing the costs of storage and transportation, and it should also enable the use of proteins where storage would be difficult or impossible. This work will contribute to the synthesis of active and stable proteins for a wide range of applications and could impact the polymer, chemical, biomedical and materials communities.